A High-Resolution, Large-Scale, Land-OBS Seismic Array Experiment Along Hikurangi Subduction Zone, Accretionary Border, Forarc and Backarc Basin in New Zealand

This research involves a large-scale land and ocean bottom seismic array experiment over the entire North Island of New Zealand and its adjacent regions as an international cooperative project between Memphis State University of the United States, ORSTROM of France, DSIR and Victoria University of New Zealand, and the University of Leeds of the United Kingdom. At least 100, three-component digital seismic stations will be deployed on land and 12 digital ocean bottom seismographs wull be deploye dto cover the entire geometry of the Wadati-Benioff zone beneath New Zealand. The results will refine the tectonic structure of an active trench and strike-slip fault region and will bear on evaluation of the seismic hazard of this active area. This research is a component of the National Earthquake Hazard Reduction Program.